REU: Mid-Cretaceous Sedimentary Record of Volcanic-Arc Evolution Along an Obliquely Convergent Margin: Southwest British Columbia

The mid-Cretaceous paleogeography and tectonic setting of southwestern British Columbia is part of a larger problem along the Pacific Northwest continental margin. This project continues study of the Tyaughton-Methow basin that records the mid- Cretaceous history of this area. Prior results have clarified the relative contribution of convergent vs strike-slip tectonics and this work will address facies models, paleocurrent data, petrologic data and geochemistry of the arc volcanics and volcanic sediments to determine back-arc/forearc positions, subduction zone polarity and the spatial configuration of volcanic arcs in relation to the ancient margin. Results will add to the regional picture of terrain amalgamation, accretion and dispersal along the Pacific Northwest.